CAREER: Transforming the Future of Flexible Transistors with Photonic Processing

Electronic devices have become an integral part of human life. From cell phones and medical devices to cars and traffic monitors, we rely on electronic circuits to keep us connected, healthy, and safe. While the vast majority of electronics today are built using hard, rigid materials, electronics that are soft and flexible are desirable for many applications. For example, wearable and implantable biomedical sensors will benefit from advances in flexible electronics that can bend and stretch to conform to the body. This research aims to make transformative changes in the performance, stability, and durability of flexible electronics. The proposed activities will generate a novel low-cost approach to fabricating flexible circuits. Results from this work will enable this novel fabrication approach to be used in a wide array of next-generation flexible circuit applications including displays, biomedical sensors, and durable lightweight electronics for military applications. In addition, a synergistic combination of research and integrated education activities are proposed that aim to inspire the next generation of electrical engineers and increase engagement of students in engineering.

Currently, flexible circuit technology is readily available for passives (metals) but in applications such as displays and sensors, flexible transistors (semiconductors) are needed. The thermal properties and solvent compatibility of plastic substrates place severe limitations on the fabrication of flexible thin-film transistors (TFTs), so TFT performance is sacrificed to achieve flexible, lightweight circuits. To overcome the fundamental tradeoff between the processing requirements of substrates and TFTs, we will leverage new advancements in photonic processing technology to produce high-performance flexible TFTs. Photonic curing uses short, intense pulses of broadband light to heat a thin film, while most of the substrate remains near room temperature. However, there is a compelling need to better understand the physics of the photonic curing process and the quality of photonically cured semiconductor TFTs. This research will pursue the following four objectives: (1) Predict the 3D thermal profile in circuits during photonic curing, and understand how geometry, device layout, proximity effects, and material properties impact curing temperature; (2) Determine the impact of photonic curing on trap states and electron transport in oxide semiconductors on plastic substrates by combining electrical and materials characterizations with a model of the density of electronic traps in the semiconductor; (3) Identify failure mechanisms of the plastic substrate to enable the oxide semiconductor to be more aggressively cured without damaging the substrates, and (4) Analyze multiple simultaneous stress factors in flexible oxide TFTs to improve their durability using a novel testing scheme that mimics a realistic operating environment. This research will advance science by shedding new light on the sub-millisecond interactions between light, heat, and thin-film semiconductor materials. New models that predict the thermal profiles during large-area photonic curing will enable this technology to be used in a wide array of flexible circuit applications. Furthermore, these activities will also build a firm foundation for the PI to pursue her long-term career goal of leading high-impact collaborative projects with physicians and health care providers. She aims to create innovative tools leading to a paradigm shift in how health care is delivered in fields such as emergency triage, battlefield wound monitoring, implantable neural interfaces, and soft wireless pediatric devices.